Designing Parallel Algorithms Using Modeling, Simulation, and Experiments

Parallel computers have the potential to significantly outperform current computer systems. In order to exploit this potential, techniques for creating and evaluating efficient parallel programs are needed. Current parallel computers have significant overheads and latencies for messages and this will continue for at least several years. Thus it is essential that programs for parallel computers be designed with these overheads in mind. Parallel computers are complex systems, so it is often difficult to predict the performance of programs based only on analytic models. Thus, it is important to evaluate parallel programs using both simulations and implementations. Networks of workstations are already widely available and they are likely to become even more prevalent. They provide an easy way to integrate the latest workstation technology into a parallel system, and they provide a cost effective parallel computer. Thus programs developed for a network of workstations have the potential to have a significant impact. This research focuses on developing and evaluating programs for networks of workstations. It results in effective algorithms for both basic problems such as load balancing, median finding, and simple graph algorithms, as well as for more complex applications such as modeling air or fluid flows. It also results in improved network support for algorithms on networks of workstations. As indicated, the performance of these programs is evaluated using simulations, so that the performance can be predicted for a range of settings, and by measurements of actual implications. A second focus of this research is to model cache-coherent shared memory systems, and to develop algorithms with good locality to help improve performance. Since algorithms for networks of workstations often exploit data locality, some of the algorithms developed for the network of workstations settings will also be effective on cache-coherent shared memory machines. Simulations and tests help determine which of the network algorithms perform well in this setting.